SGER: Design and MEMS Fabrication of Telemetry Devices for Biomedical Applications

Intellectual Merit:
In this seed project, we will
1) prove the feasibility and realize a new class of microfabricated three-dimensional inductive coils for telemetry devices used in biomedical applications;
2) develop microantennas operating in the microwave frequency range for high data transmission rate implantable systems.

We will investigate several unique approaches to create the desired structures for low-frequencytelemetry links (coils) and dual frequency power/data telemetry links (coils and microantennas). These approaches will require both numerical investigation of the coils/antennas and experimental validation of the designed devices.

Broader Impact:
The proposed activity is the result of an interdisciplinary collaboration between
bioelectromagnetics and solid-state researchers. This activity will have an immediate impact on our students that will be exposed to diverse disciplines to develop the next generations' biomedical systems. We anticipate that the proposed SGER will initiate a larger program at NCSU that will use the combined strengths in the bioelectromagnetics and solid-state research areas toward the realization of a new generation of biomedical electronics devices.